Development of Molecular Graphics Facility

This proposal requests funds to assist in the implementation of a Molecular Graphics Facility at the University of Minnesota. The Molecular Graphics Facility will support research on protein and DNA structure, function, and dynamics by biophysical methods. The development of this facility will enhance the research capabilities of a number of researchers of national and international reputation whose well-established projects require access to molecular graphics. Support is recommended.